CICI:RSSD: Hybrid Cyber-Physical Testbed for Manufacturing Security: A Living Lab for Data Driven Manufacturing Cybersecurity and AI Driven Smart Manufacturing Research

Manufacturing contributes $2.9 trillion to U.S. gross domestic product, and improving its cyberinfrastructure resilience is essential for economic competitiveness and national security. Modern manufacturing has evolved into a data-intensive scientific cyberinfrastructure in which interconnected sensors, learning-enabled controllers, and human-in-the-loop decision systems drive production, yet the research community lacks open, FAIR-compliant security datasets that capture the tightly coupled cyber-physical-human interactions characteristic of realistic manufacturing environments.

This project builds and operates a publicly accessible, annotated security dataset for manufacturing cyberinfrastructure by integrating a fully instrumented assembly testbed at the University of Georgia Innovation Factory with a high-fidelity digital twin simulator. The platform generates time-synchronized, multimodal traces organized by the Purdue Enterprise Reference Architecture, spanning network logs, physical process data such as torque curves and vibration signatures, and de-identified operator metadata collected under benign, fault, and adversarial conditions. Key innovations include a hybrid generation environment that uses a digital twin for deterministic replay and safe exploration of rare or safety-constrained events; a three-dimensional attack surface characterization encompassing cyber, physical, and human layers; and integrity-verified data lineage pipelines that ensure dataset authenticity and reproducibility. Datasets are released publicly through NSF-aligned repositories under an open-source license. This project will shorten the path from academic innovation to deployable solutions by providing defensible benchmarks for manufacturing security research, strengthen the workforce pipeline through open course modules integrated into university instruction, and sustain long-term community engagement through annual workshops, a public benchmarking leaderboard, and long-term institutional stewardship.